Fourier Transform Infrared Spectroscopy in the Chemistry Curriculum at Rollins College

The acquisition of a computerized Fourier Transform Infrared (FTIR) Spectrophotometer by the Chemistry Department of Rollins College is significantly improving undergraduate instruction by making possible the addition of several new experiments to the laboratory curriculum. The new system increases the efficiency with which principles of spectroscopy are taught in organic and inorganic chemistry courses; students are able to quickly characterize and identify unknown compounds or products from synthetic reactions. Finally, students receive instruction incorporating the use of a modern analytical instrument with computerized data acquisition and manipulation.